Swash Zone Sediment Transport on a Steep Beach

This mainly field program will examine the dynamics, both fluid and sediment, within the swash zone on a steep beach. The net sediment transport is expected to be determined by a balance between infragravity and incident wave energies. These will be modified by microtopography on the beach face.